Research Experiences for Undergraduates at Tufts University

Dr. Edward J. Brush and other members of the Chemistry Department of Tufts University are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-4, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry-analytical, inorganic, organic, physical and biochemistry. A unique feature of this program is the focus on women and minority students.